Morphological Development in Strained Alloy Films

Strained solid films are an important component of newly-developed
electronic devices such as the quantum-well semiconductor and the
bipolar heterojunction transistor. The strain in the film is
essential to these devices because it modifies the electronic band gap
in the device to generate the desired electronic properties. The
strain in the film, however, is also responsible for the generation of
instabilities during growth, resulting in nonplanar films with
inhomogeneous microstructure, such as "quantum dots" and "quantum
wires". Because of the strain localization associated with the
inhomogeneous microstructure, the resulting electronic properties can
be enhanced due to quantum electronic effects. Thus, there has been
intense interest in natural "self-assembly" of quantum dot and quantum
wire morphologies during the growth process. The research of the PI
will focus on the analysis of mathematical models for the development
of such inhomogeneous microstructures in strained alloy films. The
theoretical description of morphological development in strained films
is difficult because of the major role that elastic strain plays in
the development of the morphology; the generic case is that of a free
boundary or moving boundary elasticity problem. While there has been
a significant amount of progress made on the mathematical modeling of
the growth of single-component strained films, models for the growth
of alloy strained films are still in their infancy. The proposed
research will examine the microstructure generated from the new alloy
film models as nonlinear solutions to the moving boundary elasticity
problem using a combination of both analytical and numerical
techniques. The research will focus on three areas relating to the
formation of microstructure in strained alloy films. First, the
possibility of generating a new type of microstructure based on
self-assembled compositional modulations in thick films will be
investigated by a bifurcation analysis of the nonlinear free boundary
problem. Second the growth of inhomogeneous alloy quantum dots will
be described using a hybrid asymptotic and numerical approach, and the
theoretical predictions will be compared to experiments carried out in
parallel by a collaborator. Finally the appropriate mathematical
modeling of facet corners in strained alloy crystals will be examined
through a model which incorporates atomic-scale behavior in a
macroscopic model for film growth. The overall goal of the research
is to develop mathematical approaches that enable a comprehensive
theoretical description of nanostructure formation in strained alloy
films.

In nanoscale electronic devices, strained solid layers play an
important role because of the improved electronic properties of the
strained material. While flat, planar strained films have been used
successfully, they can be susceptible to instabilities during the
growth process and develop nanoscale bumps ("dots"). These nanoscale
"quantum dots" have been found to give superior electronic behavior
because of quantum-physics electronic effects. There is thus interest
in growing quantum dots with a controlled size and spacing to give a
material with specified or optimum electronic properties. The
research supported by this grant focuses on the development of
mathematical models for describing the formation of quantum dots and
other nanostructures from detailed modeling of the physics of the
growth process. In particular, the work will focus on the growth of
alloy films, for which theoretical understanding not well developed.
The goal of the theoretical work will be to evaluate the effect of
different growth parameters to guide the development of "optimum"
quantum dot structures. To solve the mathematical problem, advanced
mathematical techniques will be developed and applied to determine the
characteristics of the solutions and how they depend on the material
properties and growth conditions. In addition, the research will also
address the difficult question of how to incorporate atomic-level
behavior into a large scale model for strained film growth. The
theoretical predictions will be compared to experiments conducted in
parallel by a collaborator here at the University at Buffalo. The
results of the work will be twofold. The understanding of how to
treat the mathematical issues of strained alloy film growth well will be
improved. Also, a useful "parameter map" describing the important
physical processes that influence the development of nanostructures
will be developed. This parameter map can be used as a
guide to the design of strained alloy nanostructures with specified or
optimum properties.